MRI: Acquisition of a Nuclear Magnetic Resonance System

With this award from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at Rutgers University in Camden will acquire a300 MHz nuclear magnetic resonance (NMR) Spectrometer with multinuclear capabilities and a variable temperature control module. This equipment will enable researchers to carry out studies on a) synthesis of fluorinated organic compounds; b) characterization of various monomers and their corresponding precursors; and c) the catalytic mechanisms of lipoamide dehydrogenase by probing native and mutated enzymes with and without substrate. The investigators will also integrate the NMR spectrometer into several undergraduate and graduate level courses.

Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometers is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact in a number of areas including materials chemistry and biochemistry.